Requirements for Robotic Underwater Drills in U.S. Marine Geologic Research

0003323
Sager
This award to Texas A&M University will provide support for a workshop to evaluate technology required to operate drill systems in the marine environment, and particularly "robotic" systems that may be operated off of ships in the University-National Oceanographic Laboratory System fleet, thus not requiring a separate, large drilling platform. The workshop will include scientists and engineers, and will take place in late 2000, with report to be published in mid-2001.
***